An Interactive Mathematical Learning Model for Parameter Selection in Metal Cutting Operation

A feasibitlity study is proposed for development of a mathematical learning model for constructive induction and parameter selection, and its application to a machining operation. The model will enable the decision maker (eg., machine operator) to arrive at the most satisfactory decision regarding parameter selection in the machining operation. The model will "learn" from past performance of the operation, and from the operator's previous input, and automatically determine machining parameters. The model is based on decision variables such as feed and speed; objectives such as cost, production rate, and quality; and the operator's overall index of performance or utility. This approach should enable the model to become more customized to the requirements of a specific operation, operator, and equipment, and could be valuable in enhancing the interaction of operator and machine. The exploratory effort will focus on determining various ways to construct the model and achieve the objectives, in terms of both theory and application. The proposed study appears to present a novel approach to parameter selection for machining operations, which while far from practical usefulness, seems a necessary starting point, which could lead to a sharper definition of the concept. An award is therefore recommended under the procedure for Expedited Awards for Novel Research.